The Integrated of Computer-Based Data Acquisition into Electronic Technology

Computer based data acquisition and testing is becoming more and more prevalent in the field of electronics. Presently the electronic technology equipment at Nassau Community College consists exclusively of discrete, non-computerized measuring instruments. The project is incorporating data acquisition into the Electronics program at Nassau Community College through upgrading one of their two electrical measuring labs by the incorporation of state of the art computer-based "virtual" instruments. Students using this lab are being exposed to the concept of computer based data acquisition and computerized data analysis over the two years they are in the electronics program. The project builds the integration of the data acquisition equipment and analysis programs into every electronics course containing a laboratory portion. The students knowledge of data acquisition and analysis is being gradually expanded semester by semester as new aspects in this area are presented. Upon completion of the program the project equipment will allow the student to have a thorough understanding of data acquisition.